Graph Algorithms and Data Structures

This project focuses on problems in two interrelated areas: (1) algorithms for graph problems, and (2) the design of data structures. The common theme is the investigation of efficient computation in these areas. The project is to generate improved techniques, and characterize significant complexity relationships. A central issue is the efficient coordination of the acquisition of information during a complex computational task.